Computer-Interfaced Physiological Equipment for Modernizing Undergraduate Neurobiology, Psychophysiology and Animal Behavior Laboratories

The purpose of this project is to equip a modern psychophysiology lab with the computer-interfaced apparatus needed for it to support undergraduate instruction in three courses: Animal Physiology (biology), Animal Behavior (biology), and Physiological Psychology (psychology). Lack of suitable instrumentation previously limited coverage largely to lecture/discussion and reading--highly disadvantageous in any laboratory discipline. The project gives junior/senior-level students valuable exposure to modern biological instrumentation and automated data collection methods. The laboratory will also be used for an exercise in General Biology, demonstrations in General Psychology, and appropriate student research.